REU: Studies of the Surface Circulation in the NW Indian Ocean

In this project the principal investigators will analyze data obtained on two hydrographic cruises in the northern Indian Ocean during December, 1986 - January, 1987, and July - August, 1988. The hydrographic data cover the height of both the northeast and southwest monsoons, and contain nearly 120 CTD profiles on each cruise (including tracer samples) and shipboard acoustic doppler current profiles. Forty ARGOS surface current drifters launched on the first cruise in the Arabian Sea and in late fall, 1985 in the Bay of Bengal will also be included. Principal goals are to analyze the surface velocity field along the cruise tracks, and water mass modification during the monsoons using temperature-salinity and other tracer techniques.